Collaborative Research: Building Capacity and Collaboration at the Intersection of the Learning Sciences and Informal Science Education

DRL- 0814031 and 0813874
PI: Sandra Martell (U. Wisconsin) and Leslie Herrenkohl (U. Washington)
Collaborative Research: Building capacity and collaboration at the intersection of the Learning Sciences and Informal Science Education

ABSTRACT

The University of Wisconsin-Milwaukee and the University of Washington propose a conference, conference proceedings, and book that will build capacity and new collaborations at the intersection of the learning sciences and informal science education. These activities continue to expand on the outcomes of several recent conferences, publications, and projects related to research on the learning sciences and their application to varieties of educational settings. Fifty participants in this initiative will include both emerging and established researchers and practitioners, as well as international professionals.